GEM: Simulating Three Dimensional Radiation Belt Dynamics

The project will investigate the role of ULF waves in the energization and diffusion of highly energetic radiation belt particles. It will extend a previously existing two-dimensional model of energetic particles in the Earth's radiation belts to three dimensions, which will allow the model to include effects such as losses of energetic particles to the upper atmosphere. It will couple the model to a more realistic model of the magnetic field and electric field produced by Magnetohydrodynamic modeling of the global magnetosphere.